Problems for Investigation for the Analyst of the Future Program

This proposal consists of two tasks

Decision making under the suspicion of deception
Decision making under social and hierarchical pressure

As stated in the proposal, cognitive scientists and social psychologists have studied decision making under uncertainty a great deal. However there are few studies analyzing faulty information. The project will attempt to study such situations by creating potential deceptions and studying how humans react and make decisions.